A Micro-computer Facility for Teaching Quantitative Methods in Structural Geology

The University of Texas, San Antonio will purchase a local-area computer network consisting of a central file-server, seven high- resolution graphics workstations, and peripheral equipment. This system will be used to provide computer-based instruction in structural geology. This equipment also will be used in other geology courses, and for independent research projects by advanced undergraduate students. The structural geology component will employ a software package developed at UT, San Antonio. The University of Texas, San Antonio will match the NSF grant with an equal amount of funds.